Binary Black Holes and Gravitational Radiation

***
9800731
Winicour

The goal of this project is to provide stable, accurate boundary conditions for the Cauchy evolution of black holes, while at the same time determining the radiation waveform. The approach uses a fully tested 3-dimensional characteristic-evolution code for general relativity. The code was developed by this group as part of the Binary Black Hole Grand Challenge Alliance. The strategy for the boundary algorithm is Cauchy-characteristic matching, which carries out a global evolution using an interior Cauchy algorithm and an exterior characteristic algorithm, matched across a world-tube interface. While neither of the two methods alone would cover the entire physical region of interest, they complement each other because they are applied where they are most appropriate - the Cauchy method near the sources and the characteristic method in the radiation zone.

General relativity, Einstein's reformulation of Newton's gravitational theory, predicts that accelerated masses produce gravitational waves analogous to the way charges produce electromagnetic waves or objects moving in a pond produce water waves. The existence of gravitational waves has already been inferred from observations of the orbits of binary pulsars. The LIGO observatories now under construction will be sensitive enough to detect directly gravitational waves from distant galaxies. The goal of this project is to develop a method for calculating the properties of waves emitted when two black holes in a binary system inspiral and coalesce. This is important for the success of LIGO. Binary black holes are one of the prime sources of the waves, which LIGO is designed to detect. The calculation is based upon a new computational approach to general relativity.
***